Communication over Dispersive Wireless Channels: Theory and Methods Based on Physical Principles

The goal of the wireless revolution is to provide ubiquitous tetherless connectivity and access to information.
The last decade has seen great progress towards this goal with cellular phones and wireless LAN cards
now being commonplace. In particular, space-time processing, spurred by the use of multiple antenna
arrays, has emerged as a key enabler of wireless technology. Notwithstanding recent advances in wireless
communications research and technology, the state-of-the-art is far from realizing the capacity of wireless
networks because of significant gaps in our fundamental understanding of the shared physical wireless
channel. The key challenges posed by the wireless channel are due to its dispersive nature in time, frequency
and space resulting from physical signal propagation over multiple spatially distributed paths. This motivates
the central questions at the heart of this project:
What are the key factors that govern reliable communication over dispersive wireless channels?
What are the fundamental limits on communication over dispersive wireless channels?
What are the key principles that guide practical system design?
We will leverage a novel framework based on a virtual representation of physical wireless channels to
address these multi-faceted questions. The virtual representation is a powerful deconstructing tool for unraveling
the rich structure underlying dispersive wireless channels. As we demonstrate in this proposal,
the insights afforded by the virtual representation framework have deep and wide ranging implications in
the design and analysis of wireless communication systems. Within this framework, our proposed research
program has three broad integrated thrusts: